Computer-Interfaced Physiology Equipment for an Under- graduate Teaching Laboratory

This project is part of an overall plan to improve laboratory instruction in the Biological Sciences through the introduction of modern computer-interfaced equipment. The plan develops the following areas: (1) the introduction of more quantitative physiological experiments, (2) the improvement of instruction involving computers, (3) the application of the computer to data gathering and analysis and to simulating scientific phenomena, and (4) the introduction of student research. The course which accrues the greatest benefit from these developments is Anatomy and Physiology. However, the equipment requested is being utilized in all Biology courses where appropriate. Because Marymount University enrolls women primarily and because these women in science pursue careers in medicine, teaching, nursing and research, the main benefit of these modern instruments is to provide women with stronger qualifications for continuing graduate studies or for entering science-based careers. The grantee institution is matching the NSF award with an equal sum obtained from non-Federal sources.